Mathematical Sciences Scientific Computing Research Environments

9722854 Monk The Department of Mathematical Sciences at the University of Delaware will purchase a four processor computer with 640Mbytes of memory and 15.6Gbytes of disk space which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular Mathematical modeling for thin liquid film drainage, A posteriori error estimation for integral equations, Adaptive estimation of linear functions in electromagnetism.